Dissertation Research: The Development of Apennine Ceramic Manufacturing Technology: Xeroradiographic Analysis

Under the direction of Dr. Bernard Wailes, Ms Helen Loney will collect data for her doctoral dissertation. She will analyze ceramic materials collected from Bronze Age sites located in the area around Lazio in the Apennine region of Italy. Samples will cover the entire Bronze Age which dates from ca. 1600 BC to 900 BC and which documents the rise of social complexity in this region. The project has three goals: 1. To build a descriptive catalogue of the technological development of pottery during the Bronze Age. 2. To compare the physical evidence of manufacturing techniques to current ceramic typologies which are based on decoration and form. 3. To relate these developments to other economic and political developments in this region and to correlate these with changes across a broader area. Materials from four sites will be subjected to Xeroradiography and X-rays which will produce a transparent record of the production and manufacturing techniques. Because archaeologists must work primarily with material remains such as pottery, they are extremely interested in the way that technological development in the material realm is related to other societal attributes which cannot be directly observed. Therefore, through study of objects one can hopefully reconstruct other aspects of culture and social organization. The Bronze Age in Italy records the transformation of small locally organized groups into a more highly integrated and hierarchically organized society. Within this controlled context, Ms Loney wishes to analyze ceramic remains and see how closely changes and variation in manufacturing style reflect changes in this broader context. This research is important for several reasons. It will provide data of interest to many Europeanist archaeologists. It will also, hopefully, result in the development of a methodology which can be applied in other situations. Finally, it will assist in the training of an extremely promising young scientist.